New Fluorescent Indicators for Subcellular Calcium and Protein Kinase C

9318538 Poenie The goal of this project is to develop and apply new fluorescent probes that will ultimately make it possible to dissect the relationships between intracellular calcium, protein kinase C, and cytoskeletal organization that give rise to directional movements of cells and organelles. Three specific probes will be developed: 1) Calcium indicators based on the PE3 model which resist leakage and compartmentalization. The current generation of fluorescent calcium indicators such as fura-2, fluo-3, indo-1 and others are plagued by the problems of leakage and compartmentalization. The problem of leakage means that cells can only be reliably studied for a few minutes after they have been loaded. The problem of compartmentalization is that the dye may be sequestered in organelles either as the free anion or as the AM ester. This creates numerous apparent artifacts regarding the distribution of free calcium ions in the cell. At present, PE3 loads uniformly, but for many cells, little dye gets inside. Specific changes in the structure of these dyes will be made to rectify this problem. 2) Near-membrane calcium indicators will be developed based on the FFP18 model. FFP18, a fura-2 analog developed in this laboratory, has the potential to reveal differences between calcium ions near cell membranes as compared to the bulk cytosol. Because this indicator cannot diffuse freely through the cytosol it should not dissipate calcium gradients as fura-2 and other BAPTA-type indicators may. Improvements in FFP18 are needed, however, to realize the full potential of this type of indicator. FFP18 tends to form complexes or aggregates that distort its spectra and complicate calibrations. FFP18 analogs will be made that are negatively charged which should eliminate aggregation. Further, preliminary data indicate that calcium near membranes is higher than FFP18 can track. To solve this problem, FFP18 analogs with lower affinity for calcium will be synthesized. Analogs with higher selectivity for the plasma membrane will also be made. 3) New and improved fluorescent probes for protein kinase C (PKC) based on the fim-1 model will be developed. Fim-1 is a fluorescent probe that binds to protein kinase C. It exhibits good specificity for PKC when used with fixed and permeabilized cells. New fim-1 analogs will be developed that have brighter fluorescence and higher affinity for PKC, with the goal of obtaining a fluorescent probe for use in studying PKC in living cells. Fim-1 analogs that can indicate changes in PKC activation will also be developed. %%% The goal of this project is to develop and apply new fluorescent chemical probes that will ultimately make it possible to study the chemical signals that give rise to cellular organization and directional movements of cells and their internal structures. The signal molecules that will be tracked by these probes are calcium and a critical enzyme known as protein kinase C. A variety of evidence suggests that these signal molecules play major roles in controlling the dynamics of the cell's internal skeleton. These tools should allow direct visualization of where and when signals occur that direct the movements of cells.***